Model Choice and Model Averaging in Molecular Phylogenetics

Phylogenetic analysis--an endeavor aimed at uncovering the genealogical
relationships of organisms--makes strong, though testable, assumptions
about how molecular evolution occurs. Today, a typical phylogenetic
analysis is performed by first assuming a particular model of molecular
evolution, and then finding the best phylogenetic tree describing the relationships
among the organisms of interest. Importantly, the phylogenetic tree is
conditioned on the model chosen in the first step of the analysis.
Usually, the model is chosen from a small set of candidate models.
In this project, we will vastly expand the set of candidate models of
molecular evolution and devise 'automated' ways to simultaneously search for the
best model of molecular evolution and the best phylogeny. We will use a
variant of a method called Markov chain Monte Carlo to search among models and
phylogenies.

Importantly, the biologist will not only be able to find the tree(s)
that best explains his/her data but also find the best model(s) of evolution. We
intend to explore two different methods for choosing among models. The first
is a Bayesian method that calculates probabilities of models using Bayes' theorem.
The second uses information criteria to find a model that is a compromise between
the fit of the model to the observed data and the number of free parameters in the
model. We will apply the methods to alignments of DNA and amino sequences.